Mixed-Layer Cumulus Research Program

The objective of this research is to study the initiation, evolution, and decay of nonprecipitating cumulus clouds, including the various physical interactions between them. Existing observations from previous field experiments (BLX 83, and HAPEZ) will be used to examine the validity of various mixed layer cumulus models. ****//